I/U Cooperative Research Center for Advanced Manufacturing and Packaging of Microwave, Optical, and Digital Electronics

EEC-0002985
Mahajan

The Center for Advanced Manufacturing and Packaging of Microwave, Optical and Digital Electronics (CAMPmode) is completing it's 5th year of operation as an I/UCRC. Since its inception the Center has made significant technical accomplishments in it's current focus areas, namely: area array packaging, RF-microwave design methodologies, RF-MEMS and technologies for high yield manufacture of electronics.